Software Tools for the Analysis of Parallel Programs

This research aims to develop software tools which aid the programmer in analyzing the efficiency of parallel programs. Of special interest are interactive software tools for aiding the analyst in obtaining (worst-case and average-case) estimates of parallel program performance without executing the program. Theoretical models of execution are used to develop symbolic analysis tools.